Stability of Traveling Waves

Humpherys
DMS-0607721

This work focuses on the stability theory of traveling
waves, with an emphasis on front propagation arising in the
continuum and kinetic theories of compressible flow. This class
of problems models key real-world phenomena such as shock waves
in a viscous gas or plasma, detonations in a reactive gas, and
the propagation of phase boundaries in a viscous fluid. The
investigator studies long-standing open questions about the
stability of traveling waves in these areas by exploring the
effects of key structural features, such as symmetrizability and
genuine coupling. Through an exhaustive numerical study, which
includes Evans function computation, he seeks a better
understanding of the stability properties of traveling waves in
these important problem areas, particularly in regimes where
analytical methods currently provide little information. In
connection with recent work with his collaborators, the
investigator develops better algorithms for Evans function
computation. An additional benefit of this work is the continued
development of the investigator's freely available numerical
Evans function toolbox, which also allows for the exploration of
systems beyond our immediate interest. Moreover, the
investigator uses this package as an investigative tool in
student-focused undergraduate research.

Traveling waves are ubiquitous in nature, occurring
everywhere from population models in ecology to the propagation
of tsunamis in the oceanic sciences, or from shock waves of a
supersonic jet to the flickering pulses of light in a fiber optic
cable. The stability properties of these traveling waves
describe the degree to which they can persist in the presence of
disturbances. This work focuses on the mathematics of traveling
waves and develops computational methods for exploring the
stability properties of waves in a myriad of areas in the pure
and applied sciences.